CAREER: Invariant Theory, Algorithms and Applications

DMS-0349019
Harm Derksen

This is a CAREER award investigating Invariant Theory, Algorithms,
and Applications. The PI will build up a research group working
on algorithms in algebra. He will work on algorithms for various
difficult problems in algebra and the connection between complexity
theory and Invariant Theory. The PI will work with Jessica Sidman
on Castelnuovo-Mumford regularity and applications to various
conjectures. The PI will work with Jerzy Weyman on quiver
representations, invariant theory and applications. They also plan
to write an introductory book on quiver representations. A graduate
student will work on the connection between semi-invariants for
quivers, combinatorics and exact sequences of abelian p-groups.
In addition, the PI will also work on the new notion of
"black box algebras". These algebras can be used to describe
classical invariant theory. There are many interesting applications,
such as PI-theory, and universal formulas for decompositions of
tensor products of representations of simple lie algebras. Courses
will be developed in the area of algorithms in algebra.

In Invariant Theory one studies algebraic quantities which remain
unchanged after certain transformations. For example, consider a
3-dimensional space. Consider a point (x,y,z) under rotation around
the z-axis. Two fundamental invariants are the distance to the z-axis,
and the z-coordinate. These quantities remain unchanged after any
rotation around the z-axis. Every algebraic invariant can be expressed
in terms of these two fundamental invariants. A famous theorem of Hilbert
from 1890 tells us that given a collection of transformations (satisfying
certain hypotheses) of a space of arbitrary dimension, there exists a
finite set of fundamental invariants such that every invariant
can be expressed in these fundamental invariants. This proposal
supports the study of applications of Invariant Theory to several areas
in mathematics. It also supports research on algorithms for
various problems in Invariant Theory.